Katabatic Winds in Eastern Antarctica and Their Interaction with Sea Ice

This project is the continuation of an internationally collaborative (U.S.-French-Australian) study of katabatic winds along the coast of East Antarctica. It is based on two lines of automatic weather stations, one from Dumont d'Urville, the French station, inland to Dome C at an altitude of greater than 3200 meters, the other along the coast. The coastal array includes stations at Cape Denison and Port Martin, which have recorded the highest average surface wind speeds on the globe (a monthly average of 62 mph). One additional automatic weather station will be installed 15 km inland where model results predict even higher average wind speeds. These winds drive the sea ice offshore, and are responsible for extremely high heat fluxes from the ocean to the atmosphere. Satellite-based active microwave imagery (Synthetic Aperture Radar) will be combined with the observed meteorological data to analyze the formation persistence and size of offshore polynyas as a function of wind speed. The effort to produce a numerical model of the regional atmospheric structure will continue, with the incorporation of a more detailed terrain map, and a new mesoscale model developed by the principal investigator's French colleagues. In conjunction with the Australian and Japanese station networks to the west of this study area, this work will allow an assessment of the influence of cyclonic storm systems on the drainage flow along the antarctic coast. ***